Bacteriocuprein Superoxide Dismutases

The superoxide dismutases (SODs) are a family of metalloenzymes that defend against toxic oxygen species. While bacteria ordinarily contain MnSOD, FeSOD, or both in the cytoplasm, a small number contain a periplasmic CuZnSOD, called bacteriocuprein. The periplasmic location of bacteriocupreins suggests that they defend against oxyradical stress originating outside the cell. The goal of this project is to investigate the physiological function and structure of this SOD type in bacterial species exposed to external oxyradical stress. Two bacterial cell models will be studied. Caulobacter crescentus, a pond bacterium that tolerates high concentrations of oxygen, and Legionella pneumophila, a pulmonary pathogen that escapes oxygen-dependent killing by macrophages. In C. crescentus, SOD function will be studied by measuring transcriptional activation in gene fusions of periplasmic CuZnSOD and cytoplasmic FeSOD. In L. pneumophila the CuZnSOD gene will be cloned and a mutant lacking CuZnSOD will be constructed and characterized. In these studies, the mutants and gene fusion strains will be exposed to internal and external oxyradical stresses. In addition, the ability to invade, multiply and to grow in a HL-60 macrophage system will be studied for the L. pneumophila mutants. %%% Many microorganisms can be killed by toxic forms of oxygen, a gas we breath, but a few types of bacteria are resistant. It has been proposed that the resistant bacteria survive because they can make special enzymes that fight against the energized, toxic forms of oxygen. One unusual enzyme that can fight against "toxic" oxygen was discovered in my laboratory. This basic research project will study the structure of the unusual enzyme and determine how it works to destroy "toxic" oxygen, thereby allowing the cells to survive and grow in its presence.